"Advanced Control Strategies for Plasma Enhanced Chemical Vapor Deposition"

9312406 Greve The objective of this project is to demonstrate the use of new sensor technology and multivariable control strategies to improve the performance of critical processes for the manufacture of integrated circuits (ICs). In current practice, unit processes for IC manufacturing are controlled by independent regulators of macroscopic variables such as temperature, pressure, and gas flow rates. Setpoint values for these variables are determined by off-line studies and applied without adjustment during the processing of a given batch of wafers. Although setpoint tuning may be performed from batch-to-batch using techniques such as statistical process control (SPC), the use of real-time feedback to adjust the process setpoints in real time has not been possible until recently because of absence of in situ measurements of process variables more directly related to the actual process performance variables. The particular process to be studied is plasma enhanced chemical vapor deposition (PECVD) which exhibits many features common to several IC unit processes. A differentially-pumped quadrupole mass spectrometer will be used to sample species directly incident on the wafer platform during the processing. Using physical models and experiments to characterize the response curves for the process and the dynamic responses of the species concentrations with respect to the regulated variables, multivariable control strategies will be implemented to enable the direct regulation of the species concentrations. Process recipes will then be developed in terms of these measured process variables to more directly influence the process outcome as measured by several performance variables including breakdown voltage, flat band shift, thickness, and index of refraction. Two general approaches to multivariable control (robust multivariable regulation and model predictive control) will be implemented and compared leading to new insights into the practical advantages and l imitations of alternative multivariable control methodologies. New models of the PECVD process will also be identified in the course of this research leading to improvements in the process performance based on new recipes defined in terms of the measured process variables. Many of these results will be useful for other critical IC processes such as plasma etching. ***